Mt. San Antonio Math Laboratory Project

The aim of the Mt. San Antonio College Math Lab Project is to revitalize Intermediate Algebra instruction by restructuring the Intermediate Algebra curriculum, modernizing course content, introducing weekly computer-based laboratory sessions into the course, and providing students with regular classroom computer mathematics demonstrations. The approach will eventually be expanded to include most mathematics courses. Students involved are being tracked, and an in depth study is being conducted to evaluate the effectiveness of the approach. A project implementation manual is being developed and distributed to all California Community Colleges.This project is significant because it addresses one of the most pressing issues facing community colleges today: the high attrition rates and poor achievement levels in lower division college mathematics.